A Tracer Release Experiment in the Greenland Sea

Van Scoy OCE-9529605 An inert and safe chemical tracer will be released in the center of the Greenland Sea gyre during the summer of 1996 to study mixing, convection and circulation within the gyre, as well as exchange with the surrounding waters, and flow into the North Atlantic through the Denmark Strait. The tracer will be sampled in November 1996, prior to winter convection, in March 1997, during or just after winter convection, and again in May 1997. Samples will also be taken in the surrounding waters and across the Denmark Strait on cruises through 1998 to study the paths and rates of water mass exchange. This work is in collaboration with European scientists (European Subpolar Ocean Programme Phase 2) and contributes to the World Ocean Circulation Experiment (WOCE).